Monopoles and 3-Manifolds

PROPOSAL DMS-0303601

PI: Liviu Nicolaescu, University of Notre Dame

Title: Monopoles and 3-manifolds

ABSTRACT

The topology of isolated complex two-dimensional singularities has a
built-in rigidity which is not manifested in any other dimensions.
For example, in a large and clearly delimited family of
two dimensional singularities, one can determine fragile analytic
invariants of the singularity (such as the geometric genus, the signature
of the Milnor fibers, the Minor number etc.) by performing robust
topological manipulations. These are conveniently encoded by the
Seiberg-Witten invariants. The investigator intends to investigate the
reasons behind this surprising phenomenon by looking into the finer
structure of Seiberg-Witten monopoles relying on an adiabatic deformation
of the Seiberg-Witten equations.

The goal of the present proposal is to perform a micro-analysis of
singularities, objects popularly known as `catastrophes'. One could
visualise these as surfaces which are nice most everywhere except at
few places where one sees forming `cusps' and `spikes', mathematically
referred to as `singular points'. If an observer sits at a regular point
and looks around, the `horizon' he/she observes is round, spherical. The
`horizon ' of a singular point is an object mathematicians refer
to as `the link of the singularity' and is shaped quite differently
than the `horizon' of a regular point. In fact, the shape of this link
alone contains a wealth of information about how the space in the
vicinity of the singular point twists, bends and folds. This kind of
information is carried in abundance by certain objects the
physicists refer to as `monopoles'. These are similar in many respects to
the electromagnetic waves, but they are more sensitive to the shape of
the Universe they travel in. The investigator will analyze the
structure of these monopoles by `looking at these singularities
through a high resolution microscope', a process mathematically know as
adiabatic deformation of the space. This technique has already produced
encouraging preliminary results.